CAREER: Engineering Synthesis of High Performance Adaptive Robust Controllers for Mechanical Systems and Manufacturing Processes

This CAREER project develops a general framework for the design of a new generation of high performance robust control algorithms, their integration in actual sensor and controllers, and application of the integrated design to control electro-hydraulic servo-systems and linear motor driven high-speed/high-accuracy positioning systems. The controllers combine the positive features of both adaptive control and robust control, and their implementation leads to high performance and energy-saving in hydraulic machines such as those developed by Caterpillar, Inc. an industry with which the PI has developed a collaborative research relationship. The education plan includes the integration of proposed research in existing control courses; involvement of undergraduate and graduate students in research; developing continuing education and short courses for practicing engineers to facilitate technology transfer; and development of two new courses--one at the undergraduate and the other at graduate level. The project is aimed towards developing a solid foundation for designing high performance robust controllers to meet the industrial needs for high productivity and high quality products, and introduce to the engineering students and practicing engineers a strong analytical background in this area.